Transition to University and Careers Program (TUCP)

Oregon State University's (OSU) Transition to University and Careers Program (TUCP) is enhancing the successful transition of qualified STEM students from seventeen partner community colleges to OSU's University Honors College (UHC). The program is providing 20 students annually with $5,000 in support to ease the students' financial transition from an Oregon community college to OSU. The TUCP program includes a targeted course, participation in the UHC and opportunities for experiential learning. It is providing support at several levels, including financial, academic, career counseling, and general OSU and UHC support services.